Thermal Properties of Polymer Crystals, Mesophases, Glasses, and Melts (Materials Research)

This award is for the fifth year of Grant DMR-8317097. Professor Wunderlich has transferred to the University of Tennessee from the Rensselaer Polytechnic Institute, and is continuing his research on the thermal properties of polymers at his new location.